Free Boundary Problems in Volatile Multi-fluid Flows

Abstract for "Free boundary problems in volatile multi-fluid flows" by
B. S. Tilley

This proposal centers on the fundamental description of nonparallel
axisymmetric countercurrent core-annular flow regimes. The mathematical
methods of solution consist of a systematic asymptotic reduction of the
continuity, Navier-Stokes, and energy equations in each fluid to a
simpler evolution equation that describes the interfacial evolution
when the radius of the tube is much smaller than the interfacial
variation along the tube's axis. This equation will contain the
physical effects of viscosity and density stratification, axial and
azimuthal components of surface forces, shear, inertia, buoyancy,
thermocapillarity, volatility, latent heat and thermal transport. In
the isothermal situation, parallel flow is possible, conditions under
which the parallel flow solution can be unstable to a large-amplitude
solitary wave will be considered. This wave is seen in experiment.
The remainder of the proposal centers on nonparallel flows, since the
spatially varying solutions in the volatile case cannot be parallel,
and the isothermal problem experimentally is susceptible to
instabilities from inlet and outlet disturbances. The flow patterns
that are of interest include that hanging annular film, in which
gravity is balanced by the presence of an adverse shear in the core
fluid, an annular drop, and slug formation. Stability will be
investigated through direct numerical simulation of the evolution
equation under conditions similar to those found in experiment.

In a variety of engineering applications, the transfer of heat is the
limiting factor of the functionality of the entire engineering system,
such as electrical generators, electronic equipment cooling arrays,
boiler tubes, and liquid-cooled turbine blades. The systems used to
transport heat away from the underlying application use multiple fluid
layers to increase the rate of heat transport. These fluid systems are
prone to hydrodynamic instabilities, which can greatly reduce the
heat-transport properties, leading to a breakdown in the entire
application. A theoretical and experimental understanding of these
instabilities is critical to enhancements in design. The proposed
research considers a mathematical model of a common fluid arrangement
in these heat-transfer systems as a paradigm for a better understanding
of the dominant instability mechanism. Once this mechanism is well
understood, it will be possible to enhance the performance of the
underlying application. Further applications are seen in the medical
field, with the understanding of instabilities of the mucus covering of
the airways in the lungs. Understanding under what physical conditions
these instabilities occur can eventually lead to better medical
treatments of some respiratory ailments.